Scientific Computing Research Environments for the Mathematical Sciences

The Department of Mathematics at Case Western Reserve University
will purchase a multiple CPU server (2 SGI Origin 200 or equivalent),
largely dedicated to large parallel graphics computations, together
with one graphics terminal (SGI 320 or equivalent) and printer (HP
LJ4500N or equivalent), will be dedicated to the support of research
in the mathematical sciences. The equipment will be used for several
research projects, including in particular: (a) development and
refinement of numerical methods for image identification and
restoration, (b) inverse problems in 3-d miscrocopy, (c) computation
and visualization of soliton geometry, (d) turbulence and passive
tracer transport, and (e) automatic differentiation with application
to chemical engineering.